Linear Algebra Algorithms and Tools for Emerging Computing Environments and User Communities

Numerical linear algebra is the subfield that solves systems of linear
equations on digital computers. These systems appear in many fields of
applied science and engineering, as linear equations are the simplest and
most common approximation to many more complex equations. Numerical
solutions to these systems are routinely used to solve problems ranging
from structural engineering to electromagnetic radiation studies. Because
of their ubiquitous nature, subroutine libraries for solving these problems
Has been one of the most important (and most studied) areas in
computational science. This project extends one of the most widely-used of
these software packages - the LAPACK project - to use new algorithms and to
run on the next generation of hardware.

This project will pursue a broad range of synergistic activities to design
and implement numerical linear algebra algorithms. It targets a range of
dense and sparse linear systems and eigenvalue problems. The overall goal
is to produce the fastest and most accurate solvers for these problems, and
make them available to a broad and changing user community. Besides the
existing large LAPACK user community, the software will be made available
as a Grid-enabled service to the PACI, Millennium and ASCI user communities
(Millennium is the Berkeley high performance computing environment).
Indeed, much of the proposed research is motivated by particular
applications demands from these communities. Given the size and diversity
of these communities, part of the project is educational in nature, to
enable users from experts to beginning students to find what they need
among the wealth of tools available. Finally, the researchers are motivated
to meet the opportunities and challenges of new architectures in growing
use; besides the distributed environment mentioned before, they include
clusters of SMPs (or "CLUMPs").